To Build A Flying Machine: The Story of the Wright Brothers

This is a request from Claypoint Productions for 124,700 of a total budget of $526,178 to produce a one-hour prime-time documentary program on the Wright Brothers, the processes of science and engineering used in their work, and the science and technology behind their development of the airplane. The PBS program will cover the subjects of aerodynamics, aeronautics, geometry, algebra, applied mathematics, mechanical engineering, the process of invention, and the history of technology. A teacher's guide will be developed to supplement the film.